1993 International Conference on the Application of the Mossbauer Effect, August 4-8, 1993, Vancouver BC, Canada

9317188 Stevens This award provides partial support for the 1993 International Conference on the Applications of the M ssbauer Effect, August 4-8, 1993, Vancouver, BC, Canada. Research represented at the conference spans the Division of Materials Research. The support will be used to defray expenses of students attending the conference. %%% ***